Postnatal Changes in the Afferent Innervation of Hair Cells in the Rodent Cochlea

The adult mammalian cochlea contains at least two morphological types of spiral ganglion neurons. Type-I spiral ganglion cells contact inner hair cells via thick radial fibers while type-II spiral ganglion cells contact outer hair cells via thinner outer spiral fibers. However, in newborn cochlea spiral ganglion cells appear as a homogeneous population, and some spiral ganglion cells appear to contact both inner and outer hair cells. This research on guinea pigs and hamsters will focus on the spiral ganglion cell innervation of outer hair cells at a single- cell level. The overall objective of this research is to gain additional insights into the role of type-II neurons in hearing by extensively studying their anatomical development. Such a systematic study will help to further resolve how adult innervation patterns arise.